Deep Near Infrared Surveys

Neugebauer, Gerry 96-16917 Dr. Neugebauer will conduct deep near-infrared surveys at wavelengths of 2.2 and 3.5 microns with the Palomar 5-m and the Keck 10-m telescopes. The goal is to determine the morphologies, visible(- )near-infrared colors and clustering properties of faint galaxies from deep surveys. The imaging of faint galaxies provides number counts, which are used to constrain cosmological parameters, to search for new faint populations and to estimate the formation epoch of the dominant population.